Quality Control, Meterology and Force Measurements Laboratory

9451677 Eleftheriou This project will develop an experimental course in inspection, gaging and measurement systems as a significantly enhancement of the manufacturing curriculum. The course will provide students with background and hands-on experience in metrology, force measurements, sources of inaccuracy in measuring instruments, surface texture evaluation, statistical analysis of experiments, and modern quality control instruments. The course will include a sequence of experiments which will be conducted in a machine-shop environment. The lack of a well equipped metrology laboratory hinders the effective instruction of all manufacturing related courses, and the new equipment will significantly contribute to their improvement. With the new instruments, students will be able to improve mating of parts, design fixtures for quick-gaging, improve their design through proper tolerancing, and propose improved machining processes based on the experience they gain. Course activities will link exposure to metrology operations by high school, community college, and university students. The difference in the educational backgrounds of the different student groups will be analogous to the one present between formally trained engineers and technicians. Valuable lessons will be learned by both groups of students through this exercise.